II-NEW: Research Software Infrastructure for Tensor Computations

The goal of this project is to build a new software infrastructure for
continuing research on compiler optimizations for tensor computations.
Motivated by the successes of the model-driven search-based
optimization approach of the Tensor Contraction Engine (TCE) and the
polyhedral model-based transformations, an optimization infrastructure
is being developed that combines the key aspects of the TCE and the
polyhedral models and provides the flexibility to continue research on
optimizing and automatically parallelizing tensor computations for
parallel and/or distributed computations for any machine architecture,
including multi-cores and GPUs.

This novel optimization framework has potential for high payoffs in
enabling future research and eventually in generating high-performance
code for an important class of quantum chemistry codes and other
tensor computations. After further research, it will become a
valuable tool for reducing the time to develop high-performance
applications in several areas of science and engineering.